ITR/IM: Raw Data as Scientific Assets -- A Sharable Repository for Experimental Data

Abstract
CTS-0113527
Joseph Klewicki, University of Utah

It is proposed to establish a repository of raw data that are obtained from the NSF-funded Surface Layer Turbulence and Environmental Science Test (SLTEST) facility in Utah. The conceptual objective is to develop software tools and data repositories so that the massive amount of data obtained from SLTEST measurements can be managed and processed in an efficient manner, and can be made available to the scientific community.